Mathematical Sciences: Workshop in Differential Geometry

This project is a workshop in differential geometry to be held at the Aspen Center for Physics in August of 1987. The purpose of this workshop is to encourage and extend collaboration and research among differential geometers and mathematical physicists. Of particular interest to the workshop will be areas of modern geometry that have close interaction with recent research developments in theoretical physics in Gauge Theory, String Theory, and Relativity.